Model of Science and Engineering Labor Market (Supplemental Funding for continuation of Subscription Services)

The objectives of this project include (a) development, testing, and application of demand and supply models to project academic S/E personnel (both faculty and non-faculty) over a 10-15 year period; and (b) development of a data base which will facilitate timely analyses of issues related to the academic sector. The models are to serve as an analytic tool for use by NSF staff to conduct studies of potential personnel shortages in the academic sector, as well as to address factors (e.g., demography, institutional practices, Federal programs and policies) which can potentially affect this labor market. This project represents part of an ongoing NSF program which includes not only the conduct of surveys and special analytical studies to monitor S/E resources in the academic sector, but also modeling activities targeted on the total S/E labor market and S/E doctorates.